Kinetic Effects on MHD Phenomena in the Magnetosphere

This investigation deals with theory and data analysis related to kinetic effects on magnetohydrodynamic (MHD) phenomena in the magnetosphere. When MHD activity is strongly affected by particle kinetic effects such as finite gyro-radius effects, trapped particle effects and wave-particle resonance effects, traditional MHD approaches break down. The kinetic-MHD approach to be applied in this study will provide a theoretical and observational basis for understanding kinetic effects on MHD phenomena such as Pc 4-5 magneitic pulsations and magnetospheric substorms. Formulae for computing plasma instability parameters from the particle data will be obtained from this investigation. By comparing theoretical calculations with the plasma stability paramters obtained from space-based instruments, the investigators will be able to study the relationship between observed plasma properties and MHD activity in the space environment. If the theoretical kinetic-MHD stability analysis is verfied, one can perform a real-time numerical stability analysis based on in situ satellite particle and magnetic field data and realistic magnetospheric equilibria. Such an excerise could lead to advanced warning f the onset of violent MHD activity and the associated high energy particle flux that creates adverse space weather conditions.